A High-Voltage Laboratory

This project exposes students to a laboratory environment that supports their studies in high voltage generation and measurement techniques. In addition to validating theoretical concepts, the high voltage laboratory allows students to design, construct and test different types of high voltage generators, it permits hands-on experiences where students observe reactions of particular insulators to high voltages, and, it provides an environment where students gain a practical intuitive understanding of some highly theoretical topics. This award is being matched by a greater then equal sum from the grantee.